Comprehensive Alliance for Minority Participation

The Comprehensive Alliance for Minority Participation will be an intersegmental program involving the University of California, Irvine and over two dozen other public and private institutions. It will have a considerable concentration on the undergraduate biological sciences and will also include an emphasis on chemistry, mathematics, and physics. A prototype of linkages, between each of the "pieces" of the science careers pipeline, it builds upon earlier successful partnerships initiated in the region by UC Irvine. It will enable close to 1,000 underrepresented minorities to participate in collaborative research activities in the sciences each year. It involves numerous senior faculty who are themselves representatives of minority groups serving as role models in the conduct of research and as mentors. It includes (1) A Minority Undergraduate Research Fellows Program involving students at UC Irvine and several other public and private 4-year colleges and universities--a program undertaken in cooperation with distinguished scientists on the campus and in the region, (2) A Community College Alliance motivating minority enrollment in scientific disciplines and fostering articulation between science majors in 2-year and 4-year institutions, and (3) ASecondary School Outreach Program providing stimulating science programs for minority students, parents and teachers. The Alliance assures that programs focused at the undergraduate level are connected with a broader series of longitudinal pipeline efforts. It draws upon sizable private sector resources and includes linkages with business and industry, foundations, state and Federal agencies, and professional associations. It will be characterized by the long-term commitment of participants, its high level Advisory Council creating sustained cooperation among participating entities, shared governance of alliance activities, coequal participation within project activities, a focused action plan with specific longitudinal objectives, and an ongoing commitment to data collection and evaluation to assess Alliance progress and effects. Black, Chicano/Latino and Native American students will benefit substantially from the program. Scientific discipline(s) involved: Biological and Physical Sciences program(s) to which submitting: Alliances for Minority Participation Instructional grade levels (within K-12): Grades 12 - 16 on to college.